U.S.-Japan Joint Seminar: Bioorganic Marine Chemistry/ December 1990/Honolulu, HI

This award will support the participation of eight U.S. scientists in a joint U.S.-Japan seminar on "Bioorganic Marine Chemistry," to be held in Honolulu, Hawaii, December 3-7, 1990. The principal areas for discussion are (a) cultured marine microorganisms as sources of drugs, (b) isolation, structure determination, and pharmacological evaluation of bioactive compounds from marine organisms, (c) marine chemical ecology, and (d) synthesis and biosynthesis of marine natural products. The co-organizers of the seminar are Professor Francis J. Schmitz, Department of Chemistry and Biochemistry, University of Oklahoma, and Professor Takeshi Yasumoto, Faculty of Agriculture, Tohoku University, Japan. The field of marine natural products is a flourishing one in which a wide variety of bioactive compounds with novel structures, many of them quite distinct from terrestrial natural products, are being discovered. Researchers in the United States and Japan are especially active in this field, and the seminar will permit representatives of several research groups in the two countries to meet, exchange information, and develop relationships that could lead to more extensive research collaboration. There is considerable interest in exploring the oceans for bioactive substances useful as antitumor, antifungal, and antiinflammatory agents, and for other medicinal purposes. Other compounds from the sea are finding use as biochemical and pharmacological tools for studying mechanisms of action in life processes. There has been recent attention to the role of marine microorganisms in the production of bioactive compounds, including marine toxins which threaten human health. Because of the large amount of basic and applied research being carried out in the United States and Japan in bioorganic marine chemistry, information and ideas shared at this seminar can be expected to have a significant impact on future progress in the field, at both the fundamental and practical levels.